Light propagation effects in strongly interacting gases

The subject of quantum optics involves interaction of optical radiation and matter with
the ultimate goal of observing and controlling non-trivial quantum dynamics. This is
commonly achieved in systems of, e.g., dilute atomic ensembles. The fundamental
question we are investigating is to what extent strongly interacting systems can be
controlled, both, in principle and in practice. The proposed project involves related
aspects of three separate topics. The PI will investigate the build-up of cooperative
behavior such as superradiance and effects arising from it, specifically in the presence
of coherent fields and multiple levels. Secondly, she will study nonlinear coherent
interactions of light propagating in the presence of strongly interacting dipoles. She will,
in particular, explore if such nonlinearities, mediated by molecular interactions, can be
used to create coupling between single photons of the kind required for quantum
information processing. A third part connects dipolar interactions with the properties of
quantum coherence based negative- refraction materials. For all three projects the PI
will concentrate on dipole-mediated interactions and nonlinearities.